Spectroscopic Studies of the Halogen Amines

This Research Opportunities for Women Career Advancement Award is in the general area of experimental physical chemistry and in the subfield of molecular spectroscopy. During the twelve month period beginning 1 September 1989, Professor Gilbert will undertake a systematic study of the spectroscopy of the halogen amines and of their subsequent fragments that are produced by photolysis under low temperature matrix isolation conditions. The thrust of this investigation is to determine the effect of the nature of the halogen on the electronic states and reaction pathways of the halogen amines. This Career Advancement Award will enable Professor Gilbert to broaden significantly her research activities and to transition from a primarily teaching position to one wherein she can establish and maintain a viable, independent research program in her laboratory at the University of Denver.